Collaborative NSF/ASEE Poster Sessions

Engineering - Other (59)

The project supports a highly visible dissemination outlet for grant holders in the Course, Curriculum, and Laboratory Improvement (CCLI) and Advanced Technological Education (ATE) Programs. The investigators are organizing poster sessions at the American Society for Engineering Education's (ASEE) Annual Conference in 2009, 2010, and 2011. The project invites engineering grant award recipients in CCLI and ATE to submit an abstract for inclusion in the poster session. Submissions are reviewed for quality and, if accepted, award recipients submit a paper that is published in the meeting proceedings and present a poster in a special session at the meeting.